Parallel Image Smoothing and Segmentation Algorithms Appropriate for VLSI Implementation

This research focuses on two main themes: (i) the unification of image segmentation methods in a framework based on scale space an differential equations, and (ii) the texture segmentation using Gabor filters and energy functions with discontinuities. It is intended that the resulting techniques will utimately be suitable for VLSI implementation. The goal of (i) is to provide a mathematical framework within which many current approaches to image segmenttion can be compared. The goal of (ii) is to devslop a model for texture segmentation using the energy function approach with Gabor filters. Interactions between filters will allow the system to deal with slowly varying changes in the orientation of textures, such as ocur in foreshortening.